Global Environmental Change: Consequences for Multitrophic Interactions Across Genotypes and Scales

Abstract
Rick Lindroth and Caroline Awmack
Proposal 0129123

Increasing concentrations of atmospheric carbon dioxide (CO2)
and ozone (O3) are anticipated to exert widespread impacts on
ecosystems. Exceedingly little is known, however, about the
effects of these factors on the dynamics and genetic structure of
populations of interacting species. The purpose of this research is
to assess the independent and interacting effects of elevated CO2
and O3 on the dynamics of a host plant - herbivore - natural enemy
model system. This research will be conducted at the Aspen FACE
(Free Air CO2 Enrichment) facility in northern Wisconsin. Studies
will be conducted to evaluate the long-term impacts of CO2 and O3
on the population dynamics of natural assemblages of red clover,
pea aphids, and two natural enemies (ladybeetles and a parasitic
wasp), and the importance of genotype in influencing such
interactions. Results will improve our understanding of the relative
importance of competition as well as bottom-up and top-down
trophic interactions for community dynamics, in the context of
global environmental change.